A Video Visit: Showing Mathematics Departments Supercalculators as the Personal Approach to Core CurriculumReform

A video on using supercalculators as one approach to curriculum reform is being designed, developed, tested, and evaluated. The video will illustrate the changes that take place in mathematics classrooms when personal supercalculators are used regularly for instruction, homework, and tests. Live classroom instructional scenes, separated by brief interview statements by national curriculum reform leaders, will be featured. The completed video will be mailed, free-of-charge, to each of the nation's 2,5000 mathematics during August 1992.